Implementation Structures for Nonlinear Digital Filters

Digital filters find extensive use in a variety of communications and signal processing applications; they are critical to proper system performance. Much engineering research has been done on linear digital filters and this investigation is a logical extension to implement nonlinear or digital filters. Nonlinear filters are required in certain important applications, especially where noise is not signal independent and/or additive.